SENSORS: Collaborative Research: MEMS for Multi-Mode Civil Infrastructure Monitoring

The overall research objective of this project, a collaboration between CMU and Lehigh, is to develop, study, and test new MEMS sensor system regarding its capabilities for structural monitoring. The proposed research embraces new MEMS transducers development, combined experimental and mathematical investigation of the devices' multi-mode sensing performance, structural testing for determination of condition characterization, and methods to power and communicate with devices. Included is also an integral component of mathematical investigation of non-linear effects of sensors performance and their electromechanical functions.

The project will significantly promote teaching and training of students of all levels and diverse backgrounds by sharing experience on non-traditional mode on the basis of multidisciplinary education. The technical outcome is expected to enhance the management, safety and security of the public infrastructures through smart sensing and monitoring.